Geologic and Geophysical Evaluation of a New Mechanistic Model for the Opening of the Gulf of Mexico

9419472 Schouten The principal investigators will evaluate the edge-driven model for the kinematic evolution of the Gulf of Mexico. Two- dimensional and three-dimensional analysis of magnetic edge anomalies around the Gulf rim will determine the nature and distribution of magnetic boundaries that may represent synchronous and diachronous parts of conjugate crustal boundaries of North America and Yucatan. The produce will be a quantitative, continuous kinematic solution for the opening of the Gulf of Mexico. ***